Software for Measurement of Crop Water Use and Control of a Water-Delivery System

In a project submitted to the National Science Foundation, Drs. Robert J. Lascano and R. Louis Baumhardt propose to develop software that integrates the measurement and calculation of crop water use with a water delivery system as a research tool for scientists evaluating the fate of water in the soil-plant-atmosphere system. Their objective is to develop a software platform that integrates calculations of soil (Es) and crop (Ec) water evaporation from measured weather parameters using a mechanistic model, with independently obtained soil water content and stem flow data. Results will be accessible through a user friendly graphical interface that will also be configured to activate a water delivery system. The software, modular in design and written in Microsoft Visual for MS-Dos and Windows environment, first obtains weather data and calculates Es and Ec with the mechanistic model ENWATBAL. Second, the software compares calculated and the measured, if available, values of Ec and Es. Crop evaporation is measured by the stem-heat balance method using commercially available gauges and Es is measured from changes in soil water content using time domain reflectometry (TDR) technology. Third, the software compiles the data in both tabular and graphical formats that maybe accessed through a user friendly interface that also activates a water delivery system to replenish the soil water according to the researchers' requirements. A prototype software/water delivery system will be developed and tested for an irrigated cotton crop using a drip system. Software development and testing are proposed for two years. They will do a field experiment to evaluate hardware performance and install instruments to measure stem flow, soil water content and temperature, and weather parameters. This data will be sent via cellular phone to a computer that executes the ENWATBAL model providing the user with crop water use information on real-time. The advantages of the proposed software/water-de livery system include the integration of real time Es and Ec calculations using a mechanistic model with the unique feedback loop of real time measurements of Es and Ec and the automation of water application. Lascano and Baumhardt contend that the proposed software will be a valuable tool to researchers working on variable frequency and/or deficit irrigation. Currently. these projects use an estimate of potential (grass) total water evaporation and an empirical crop coefficient to calculate actual water use and schedule irrigation that could otherwise be directly calculated and validated with the proposed software. Furthermore, other researchers working, for example, on optimizing water use efficiency of various crop cultivars, relating soil fertility to water use efficiency, determining the effects of insect damage on crop water use, may use the proposed software to evaluate their hypothesis and field experiments.